Workshop on National Needs for Controlled Environments in the Disciplines of Biology, Ecology and Environmental Sciences; February 21-25, 1993; Lake Tahoe, CA

This workshop will help identify the future needs for controlled environment facilities across a spectrum of disciplines in biology, ecology and environmental sciences, from physiological ecology, to global climate change to human support systems. The workshop will involve approximately 40 participants from federal agencies (40%) academia (46%) and the private sector (16%), cumulatively representing the spectrum of disciplines for which controlled environments are critical research facilities. A major focus of the workshop will be new areas of investigation in which the plant and ecological sciences play a significant role, i.e., landscape ecology, and biogeochemistry at atmosphere/geosphere/ biosphere interface.